Investigating cognitive mechanisms underlying human language structure and processing

This project investigates how human cognition represents and processes highly conventionalized ordering patterns in language. The project addresses this question by examining how human cognition gives rise to fixed ordered preferences in binomials — two-part expressions such as “fair and square” and “bits and pieces.” Expressions like these, in which the parts usually occur in a certain order, are an important aspect of everyday language. Understanding how words combine to form phrases (syntax) has long been considered key to understanding human cognition. Yet grammars classify both “fair and square” and “square and fair” as equally correct. The same goes for word-building. There seems to be a reason why people say “easy-peasy” and not “peasy-easy,” but what is that reason? Linguists and psychologists are starting to think that syntax and word-building may depend on more than grammar rules like part of speech. In some cases, they may also depend on the sounds of speech. For example, “easy-peasy” may sound better because the first part is shorter than the second part. Knowing more about how speech sounds affect language use will help scientists understand how language works in the mind and why language has the patterns that it does. For example, putting the shorter part first may give speakers and listeners more time to plan and process the longer part. In addition to the research, the project teaches the public about language and how scientists study it through museum programs and other activities.

The research focuses specifically on how the beginning consonants of elements affect their ordering within binomials. To this end, the investigators study binomials that rhyme. If “fair” comes after “square” for phonetic reasons, it must be because of differences in the initial consonants. The central hypothesis is that speaker’s strong preferences for particular ordering reflect systematic cognitive and phonological constraints operating during language processing. To test this hypothesis, the project combines large-scale linguistic analysis with controlled psycholinguistic experiments designed to evaluate how language specific structural factors influence speakers’ judgements and processing of fixed expressions. By examining how humans represent and process highly conventionalized ordering patterns, the project provides insights on how the mind detects patterns and encodes ordering preferences under multiple interacting language constraints. Broadly, the project will provide new empirical evidence about how subtle linguistic regularities are encoded, generalized, and accessed during real-time processing.